A Design Methodology for Architectural Glazing Systems to Resist Windborne Debris Impacts

9628807 Behr The vulnerability of building envelopes have been amply demonstrated during recent extreme wind events which resulted in damage to building interiors, loss of building functions and great replacement/repair costs. Laminated glass units have shown significant promise for glazing systems that resist windborne debris impacts. A computer-based design methodology will be developed to predict the probability of an inner glass ply fracture in a given laminated glass unit under impacts from a design missile traveling at a prescribed speed. To accomplish this, a robust structural mechanics-based predictive model for laminated glass units with polyvinyl butyral interlayers will be developed and verified by means of comprehensive laboratory tests. Project deliverables will include a computerized design package that can be used to design and develop cost-effective glazing systems that exhibit "sacrificial ply behavior," i.e., the outer glass ply may be fractured, or "sacrificed" to windborne debris impacts, but the interlayer/inner glass ply composite is sufficiently resilient to protect the inner glass ply from fracturing. Thus, the integrity of the building envelop is preserved during the windstorm. This project will involve a team of civil engineers, mechanical engineers and statisticians. Project results will provide the research community with needed data, will have a significant positive impact on mitigating building envelope damage due to severe windstorms, and will benefit building owners and building insurers in the United States.